Language Generation for a Speech Prosthesis

This project is developing a novel approach to natural language generation, applying it to computer-aided text and speech generation for people with physical disabilities. Many people who cannot speak because of physical disability utilize text-to- speech generators as prosthetic devices. However, users of speech prostheses often have more general loss of motor control, and despite aids such as word prediction, text entry is slow and difficult. For typical users, current speech prostheses have output rates less than a tenth of the speed of normal speech. This prevents natural social conversation, since it completely disrupts the usual processes of turn-taking, and can lead to negative effects on the listener's attitude to the prosthesis user. The main focus of this research is the investigation of techniques which can improve rates sufficiently for more natural conversation to be possible, without sacrificing flexibility of content. This new approach employs a combination of a wide- coverage grammar, corpus-based word frequency data, and conversational templates. Applied to speech prosthesis, it enables the production of full sentences from minimal user input in a context-sensitive way. The approach can also be applied more generally for efficient production of formulaic text like the structured reports used widely in business and government.